Biochemistry of Hemoglobins and Oxygen Transport

A problem of major importance in biochemistry is the determination of mechanisms by which different parts of proteins communicate with one another. The giant 200-subunit hemoglobin of the earthworm is an important model system for such studies because ligand binding is highly cooperative and subunit assembly is ligand-dependent and is controlled by pH and calcium ions. This laboratory has determined the amino acid sequences of chains a, b and c that form a disulfide-linked trimer, which, together with a 4th heme- containing chain (sequenced by others) and non-heme linker chains, associate to form the full-sized molecule. The goal is to determine the subunit association equilibria, their calcium and pH dependence and their linkage with oxygen binding. These studies will form the basis for understanding structure and function of the intact molecule. The hemoglobins from a wide range of invertebrates and vertebrates aggregate upon deoxygenation to form complexes of lower affinity for oxygen than the separate components. This is a control mechanism of considerable physiological and evolutionary importance. A major long-term goal is to determine the structures of the associated complexes and the linkage between oxygen-binding and aggregation in amphibian, avian and lamprey hemoglobins among vertebrates and echinoderm and molluscan hemoglobins among invertebrates. %%% Many proteins in nature are composed of smaller proteins which may be are identical or different. These subunits can sometimes affect the structure of neighboring subunits and thus cooperatively "communicate" with one another. The giant 200-subunit hemoglobin of the earthworm is an important model system for such studies because when certain molecules bind to one subunit many subunits change shape. The subunit shape is controlled by pH and calcium ions. The primary structure is known of subunits a, b and c that form a complex which, together with a 4th heme-containing subunit, associate to form the full-sized molecule. The goal is to determine how tightly the subunits associate, and what effect calcium and pH have on this association and with oxygen binding. These studies will form the basis for understanding structure and function of the intact molecule. The hemoglobins from a wide range of invertebrates and vertebrates aggregate upon deoxygenation to form complexes of lower affinity for oxygen than the separate components. This is a control mechanism of considerable physiological and evolutionary importance.